Workshop on Atomization and Sprays; Gaithersburg, MD; July 19, 1991

An one-day workshop on "Atomization and Sprays" is proposed to be organized on July 19, 1991, with leading scientists in the field from U.S., Europe and Japan. Fundamental aspects and potential industrial applications will be discussed in a variety of topics, including nozzle engineering, spray structure, computational fluid and particle mechanics, laser diagnostics techniques, paint spraying, manufacturing with liquid metal sprays and agricultural spraying. About twelve experts will present summaries of the state of the art and identify unsolved problems and future research trends. These presentations will be reviewed by all participants, and a report will be written. The meeting will be held at NIST, and will be chaired by Dr. N. Chigier. About 50 participants are expected to attend. Recent advances in understanding the spray physics have open new opportunities for research and industrial applications. The proposed symposium will bring together several of the best researchers in the field from US and abroad, and it is expected to provide a set of recommendations for future research.